Studies of High Tc and Buckminsterfullerene Superconductors under High Hydrostatic Pressure

The goal of this proposal is to search for correlations between the superconducting and normal-state properties in selected oxide and Buckminster fullerine compounds as a function of hydrostatic pressure. Emphasis will be placed on the effect that pressure induced changes in the local oxygen ordering have on the superconducting transition temperature Tc. The results of this study should lead to information on the mechanism(s) responsible for the superconducting state and aid in the search for compounds with higher values of Tc.